Spectral Geometry of Non-Compact Domains and Riemannian Manifolds

Abstract for DMS - 0100829

The principal investigator will study the spectral geometry of non-compact
domains and Riemannian manifolds in order to elucidate the geometric
content of scattering poles. First, the PI will continue his study of the
spectral geometry of hyperbolic manifolds and their perturbations. He will
study resonances as functions on the deformation space of the underlying
discrete group, and define and analyze a determinant of the Laplacian.
Secondly, the PI will study scattering theory for the wave equation on
two-step nilpotent Lie groups and their quotients by discrete subgroups.
New parametrices or the wave equation on the Heisenberg and Heisenberg-type
groups will be derived, and trace formula for certain quotients obtained.
Riemannian submersion techniques of Gordon, Wilson, and others will be used
to obtain pairs and families of `isoscattering' manifolds which will help
determine the limits of geometric information which may be deduced from a
knowledge of the scattering poles. Thirdly, the PI will study the
isoscattering problem for exterior domains in Euclidean space.

The fundamental problem of spectral geometry is to elucidate the
geometric content of the Laplace spectrum on a Riemannian manifold.
For so-called scattering manifolds, the eigenvalues of the Laplacian
together with scattering resonances constitute the spectral data for the
manifold. Elucidating the geometric content of such spectral data
advances our understanding of quantization, produces new analytic tools
for the study of geometric objects, and provides insight into inverse
problems of a more `applied' nature where the eigenvalues and scattering
poles are measurable quantities. The present work aims to begin with
geometrically natural examples where techniques of Lie theory, automorphic
functions, and harmonic analysis may be used, and progress to harder
problems such as target identification by radar where such techniques
are not available but the underlying mathematical problems are very similar.